Travel Grant: International Heat Transfer Conference; Kyongju, Korea; August 23-28, 1998

Proposal Number: CTS 9817800

Principal Investigator: M. Naraghi

The award is to support travel to the International Heat Transfer Conference in Kyongju, Korea. The PI will present a paper on his current research and meet with representatives of Korean firms involved in crystal growth. The industrial meeting will concentrate on developing a radiative transfer model as part of the PI's involvement in a Consortium for Crystal Growth located at the State University of New York.